U.S.- U.K. Cooperative Research: Serological Markus of VA Mycorhiza for In Situ Monitoring of Fungal Competence

This award for a long-term visit to the United Kingdom will support cooperative research in fungal ecology between David M. Sylvia of the University of Florida and Peter Jeffries of the University of Kent in the United Kingdom. The objectives of their research are to understand vesicular-arbuscular (VA) mycorrhizal function in the soil and to evaluate the impact of the external fungal hyphae on plant competition for soil nutrients. Mycorrhizal fungi have an important role in increasing plant uptake of phosphorous and other poorly-mobile nutrients from soil. The external mycorrhizal hyphae are filament structures which enable the update of nutrients through plant roots. By studying the external hyphae, the researchers will be able to evaluate the survival, distribution, and competitive ability of VA mycorrhizal fungi in soil systems. Previous work on the hyphae of VA mycorrhizal fungi have been limited due to the difficulty of obtaining large quantities of hyphae free from contaminating soil. The U.S. investigator brings to this collaboration his technique of culturing fungi free from soil and plant material. This is complemented by the immunological approaches of Dr. Jeffries which will enable the investigators to detect and evaluate the impact of mycorrhizal fungi in situ.